Three-Dimensional Kinematics of Fold-Thrust Belt Salients at Two Scales: Sierra Madre Oriental, Mexico

9614582 Marrett Fold and thrust belts the result of collisional tectonics, are seldom straight. The salients and recesses observed on several scales in orogens may be the result of different mechanisms, however it is commonly difficult to determine the three-dimensional kinematic sequences of their development. This project will examine two salients in the Sierra Madre Oriental fold-thrust belt where preliminary information hints at significant across-strike kinematic variation, and probably two different mechanisms of formation. The salients are unusually well-exposed, and are expected to provide adequate controls for rigorous modeling. Results should help clarify the processes that give rise to the three-dimensional complexities curved fold-thrust belts.